Distributed Algorithms

This project involves the development of algorithms, impossibility results, and upper and lower bounds on complexity, for problems arising in distributed computing. Specific areas of distributed consensus, resource allocation, wait-free computation, static and dynamic network communication, and distributed database concurrency control and recovery. Issues involving time - for example, the power of timing- based algorithms - are a particular focus. The work on algorithms is expected to yield supporting work on formal computation models for distributed and timing-based systems, and on verification techniques.